First AMPATH International Conference: Valdivia, Chile; April 12, 2002

The main objective of the conference is to create an environment for AMPATH participants, potential participants and those with a regional, hemispheric or international interest in the project to exchange ideas, form new and solidify existing collaborations.

The conference will continue the work of identifying the universities and research centers in the AMPATH service area who require, or would take advantage of, high-performance connectivity to research institutions in the U.S. and worldwide if it were available. Proposed speakers at the conference include researchers that participate in projects between collaborators in the U.S., Canada, the AMPATH service area, Europe and Asia/Pacific.

AMPATH is a project of Florida International University in collaboration with Global Crossing, in support of scientific research applications that either involve collaboration between U.S. and multi-national researchers or wholly run U.S. projects in the AMPATH service area. Research and Education networks to the UCAID Abilene network and the Central America, Mexico and the Caribbean and the rest of the world to further advance U.S. science and education.